Concurrent Processing of Power System Dynamic Simulations

Large scale system simulation of long term power system dynamics has proved to be a vexing problem with respect to cost and accuracy of solutions. This proposal suggests a new approach termed a multi.grid scheme (multi.grid in both time and space) which increases parallelism and speeds up the iterative process. Analytical investigations into questions of rates and regions of convergence are also proposed.